Pre-College Teacher Development and Incentives

Tougaloo College has planned an intensive program of activities scheduled for three weeks in the summer of 1986 followed by 14 biweekly Saturday workshops during the academic year. The program focuses on updating the biology, chemistry, physics, mathematics, and computer science backgrounds of 30 creative instructors with multicourse teaching assignments in small towns in central Mississippi.